Studies of the Molecular Structure and Local Ordering in Conducting Polymers

w:\awards\awards96\*.doc 9631575 Winokur This project investigates the structural properties of conducting polymers. These polymers exhibit an enormous diversity of interesting and technologically important physical behavior. X- ray and neutron scattering techniques will be used to determine the local atomic structural characteristics which influence the structure/property relationships in these materials. These experimental methods will be complemented by modeling methods which generate physically accurate molecular structures. Finally, methods will also be developed for studying the evolution in situ so that subtle and transient effects can be discerned and analyzed. The knowledge and techniques developed through the course of this research will provide basic and accurate answers to many fundamental questions that currently exist concerning structure and its evolution in conducting polymer hosts. The project is co-funded by the Condensed Matter Physics Program and the Polymers Program. %%% This project investigates the structural properties of conducting polymers. These polymers exhibit an enormous diversity of interesting and technologically important physical behavior. X- ray and neutron scattering techniques will be used to determine the local atomic structural characteristics which influence the structure/property relationships in these materials. These experimental methods will be complemented by modeling methods which generate physically accurate molecular structures. Finally, methods will also be developed for studying the evolution in situ so that subtle and transient effects can be discerned and analyzed. The knowledge and techniques developed through the course of this research will provide basic and accurate answers to many fundamental questions that currently exist concerning structure and its evolution in condu cting polymer hosts. The project is co-funded by the Condensed Matter Physics Program and the Polymers Program. ***